Determination of Q and Inversion of Attenuation-Corrected Gross Earth Data

Project involves investigation of the equations of state and the anharmonicity of the earth and applys it to such problems as the mineralogy of the upper mantle and temperature gradients in layer D". Project studies include the anisotropy of the core and constrained anisotropic inversion of surface wave data, and low order harmonics of lateral heterogeneity.